Geometry Festival

DMS-0406248
Herman Gluck, Eugenio N. Calabi, Karsten Grove, Scott Wolpert, Wolfgang Ziller

The Geometry Festival is one of the main annual conferences in the area
of Geometry and Topology. It has been held annually in rotation since
1985 at the University of Pennsylvania, the University of Maryland, the
University of North Carolina, the State University of New York at Stony
Brook, Duke University, New York University's Courant Institute of
Mathematical Sciences, and Northeastern University.

The Geometry Festival has the aim of exposing and explaining the major
recent accomplishments in the field to a diverse audience of interested
students and faculty, and of bringing together present and future experts
in a supportive atmosphere, with special attention to and financial support
for under-represented groups, graduate students and young faculty. Each
year, the host school maintains a website which gives detailed information
about the Geometry Festival, and includes a cumulative listing of all past
speakers and their topics. The current website is
www.math.duke.edu/conferences/geomfest03/